Earthquake Analysis of Buildings Including Site Properties

The September l985 Mexico earthquake clearly demonstrated that the dynamic properties of the foundation material have a significant effect on the behavior of building systems. The purpose of this project is to develop computational methods and microcomputer programs which will allow engineers to conduct earthquake response analysis of buildings, including the site amplification effect. The methods of analysis are verified by detailed studies of buildings which have been damaged in Mexico City. Vibration tests are conducted on one building before and after repair and the results are compared with computer analysis. The TABS program developed at Berkeley is modified to include a new foundation model and used for several structures selected in which the foundation properties are known. Results of analysis are compared with observed behavior during the Mexico earthquake. Foundation modeling guidelines are developed which can be used for other sites. Finally, the site-response program is transferred to the MS-DOS microcomputers.